Tale of a Nuclear Winter

Studies in Science, Technology and Society (SSTS) supports research about the intellectual and value contexts that govern the development and use of science and technology. Ethics and Values Studies, in SSTS, supports research on ethical and value aspects of the interaction between science, technology and society. This research project uses the techniques of historical research to study a particular episode of this interaction--the nuclear winter phenomenon. Controversy existed from the moment of its announcement in the fall of 1983. Some scientists and policymakers criticized the initial study as being inexact and its publication premature. Others reacted against the way it was "marketed" to the public and was the vehicle for a call for changes in national defense policy. Subsequent research modified the original conclusions of cold and darkness, but it is widely believed that the climatic effect would still bring disaster on a global scale. Nuclear winter is an excellent example of the way in which many branches of science contribute to a discovery; of the way in which science advances by building on earlier work; of the interaction between science, institutions supporting science, the media, and the public; and of the impact of science upon public policy. In this project, the investigator will examine the published literature and use interviews to craft the story of nuclear winter's discovery, evolution, popularization, and scientific and public controversies. It will highlight different normative views of the way science and scientists should appear before the public, and when it is appropirate to urge action by the government based on scientific knowledge. This research has an important and timely focus; its results will be useful and accessible to a wide audience. The qualifications and track record of the investigator are excellent; institutional support is good; the research plan is sensible. Support is highly recommended.